Conference: Support for First Annual Computation and Neur Meeting CNS*92, July 26-July 31, 1992, in San Francisco, California

This award will provide support for the "First Annual Computation and Neural Systems Meeting", to be held in San Francisco, July 26-31, 1992. The meeting will bring together experimental and theoretical neurobiologists along with engineers, computer scientists, cognitive scientists, physicists, and mathematicians interested in understanding how biological neural systems compute. The meeting will equally emphasize experimental, model-based, and more abstract theoretical approaches to understanding neurobiological computations.